New Numerical Methods and Analysis for Navier Stokes Equations Involving Interfaces and Simulation of Electro-Migration of Voids

This proposal is for the continuation of the PI's research toward the
development, implementation, and application of efficient numerical methods
for interface problems especially with moving interfaces and/or free
boundaries. Specific projects include development of the immersed interface
method for the Navier Stokes equations modeling incompressible viscous two
phase flow with fixed or moving interfaces. Related to this topic, some
important projects include development of new projection and/or gauge
methods so that the second order accuracy can be preserved even with the
presence of interfaces; second order elliptic solvers that can satisfy the
maximum principle for interface problems in two and three dimensions; the
finite element methods using Cartesian and/or adaptive Cartesian grids for
interface problems. Another application which will be studied in depth is
the simulation of electro-migration of voids in integrated circuits with
the presence of grain boundaries.

This proposal is about developing efficient (fast, accurate, and in real
time) methods to simulate some important moving interface/free boundary
problems. Applications include the simulation of the interface between
water and oil in petroleum industry; simulation of contaminated bubbles
in water for environmental science; simulation of crystal growth of pattern
formulation in material science; simulation of cell deformation and motion
of biofilm in medical and biology sciences; and simulation of
electro-migration of voids in an integrated circuit in semi-conductor
industry. Over the years, we have developed advanced methods for solving
these interface problems and we believe we are the leaders in this area.
Therefore we are very confident in the success of the proposal and can
maintain the edge in this area over other countries. Economically, the
success of this proposal can save millions of dollars that are
needed to carry out real experiments.